Mathematical Sciences: Cohomological and Homotopical Methodsin Mathematical Physics

Cohomological physics refers to that part of mathematical physics, primarily gauge and other field theories, in which a variety of cohomological techniques are seeing increasing application. Stasheff's own research is concerned with application of those techniques he had earlier developed in relation to his study of classifying spaces and rational homotopy theory. Currently he is particularly concerned with two classes of problems: I) the homological aspects of reduction of constrained Hamiltonian systems, both classical and quantum, as embodied in the BRST formalism and the Batalin-Fradkin-Vilkovisky complex and its generalizations, and II) homotopy associative differential graded algebras as they occur in string field theories and spin n-algebras. Henneaux and Stasheff have generalized the BFV complex to handle reducible constraints of first class and now intend to apply the construct to physically interesting examples. Analogs of associating homotopies have appeared in string field theory and have led Stasheff to define a homotopy associative convolution algebra and tensor calculus. With the Italian physicist, Cotta-Ramusino, he plans to investigate the physical significance of this homotopy and possible higher order structures as in his previous work. Such higher order terms are definitely present in spin-n algebras for n bigger than 2. He intends to investigate these higher order structures by translating them into the BRST formulism. Many of the techniques used in these applications come from Homological Perturbation Theory. This project includes further development of that machinery at the theoretical level in addition to the applications in theoretical physics.